Biradical-Like Reactive Intermediates

This grant from the Organic Dynamics Program supports the continuing work of Dr. Josef Michl at the University of Texas at Austin. This work will provide new insights into the nature of short-lived intermediates that are formed in the course of chemical reactions and will also develop new approaches to chemical measurements using a "molecular-size construction set". The experiments that will be carried out by Dr. Michl fall into two categories. The first is focused on biradical intermediates, which will be generated by photolytic or pyrolytic processes and then be trapped in a low-temperature, inert-gas matrix. Electronic and vibrational spectroscopic studies will afford an improved understanding of the structure and reactivity of these unstable species. The second category is centered on Michl's staffane hydrocarbons, which are rod-like molecules made up of recurring bicycloı1.1.1!pentane subunits. These "molecular Tinkertoys" provide a unique opportunity for studying the transmission of electronic effects through a molecular framework. Professor Michl will also take advantage of the linear shape of these molecules to link these molecules together and form supramolecular assemblies with well-defined molecular structures.